BIBM Conference: Fostering Interdisciplinary Research and Education in Bioinformatics and Biomedicine

The Third Annual IEEE International Conference on Bioinformatics and Biomedicine provides an open, interactive forum to promote multi- and interdisciplinary research and education in bioinformatics, computing science and biomedicine, facilitating development of new ideas for bridging gaps. In addition to contributed talks and special publication in top scientific journals, the meeting provides focused workshops, tutorials and posters. BIBM has made a significant effort to engage your researchers in the meeting organization and also provides mentoring activities in the program. There is particular support for both early career researchers and graduate students, providing both training and broadening the overall scientific impact of the conference.